DISSERTATION RESEARCH: Elucidating the Roles of Abiotic and Biotic Factors in Exotic Species Establishment: A Trait-based Approach

Invasions of non-native species are one of the greatest environmental challenges of the 21st century, threatening not only native flora, fauna, and the ecosystem services that they provide, but also agriculture, human health, and the economy. Invasion and establishment of non-native species is driven by both physical (abiotic) factors, such as temperature, and by interactions with native species (biotic factors), such as predation and competition. Understanding how these biotic and abiotic factors magnify or cancel one another is necessary for forecasting the conditions under which invasive species establish in new localities, and for developing methods to control the spread of such species. Yet, most studies overlook the joint effects of abiotic and biotic factors on invasion success because they examine on only one type of factor. This project addresses this problem by examining the joint effect of environmental temperature and competition for resources on invasion by an insect in California. The research combines laboratory experiments, field observations, and mathematical models to forecast the conditions that allow the invasive species to spread. Currently, the U.S. spends hundreds of millions of dollars annually on invasive species control. This project aims to reduce this cost by providing the scientific knowledge needed to develop more cost-effective control measures.

The project integrates manipulative experiments, field observations and mathematical models to examine how temperature and competition impact population dynamics and species interactions of an ecologically related pair of insects, one native and one invasive. The impetus for this work comes from a native-invasive interaction occurring in the California coastal sage scrub community in which two Hemipterans (Family: Pentatomidae), native Murgantia histrionica and recent North American invasive Bagrada hilaris, compete for their primary host, the perennial shrub Cleome isomeris. This study aims to (i) quantify the joint effect of temperature and density on life history traits (fecundity, development, mortality) of the two species, and (ii) parameterize a mathematical model of stage-structured population dynamics that incorporates mechanistic descriptions of vital rate temperature responses, and time-dependent developmental delays that arise due to temperature variation. These goals are achieved through (i) a fully factorial lab experiment with density and temperature treatments, (ii) estimation of model parameters using maximum likelihood methods applied to experimental data, which are used to analyze a delay differential equation model of population dynamics, and (iii) field collection of insect abundances to test the model's predictions.